Kieve Science Camp for Girls

Kieve Science Camp for Girls is a one-week residential experience for 60 fourth, fifth, and sixth graders from three rural and poor Maine communities. Building on research and the expertise of Kieve Science Camp instructors and the Kieve Leadership Decisions Institute, this program is designed to tackle issues known to stifle the confidence and enthusiasm of girls in science. All activities will be hands-on. Kieve recognizes the importance of informal education: asking questions, exploring, designing, testing, trying again, and reaching decisions based on direct application and evidence will be the daily bread at camp. Group problem-solving challenges, requiring collaboration, and risk-taking, often a new skill for girls, will be encouraged throughout the program and on the ropes and adventure course. An important goal is a positive attitudinal shift: girls should think science is fun, important in their lives, and that they can be full participants in the scientific world which they inhabit. The carefully selected female instructors and staff address the importance of role models. The inclusion of two teachers from each home school will sustain the successes of the Kieve experience and further spread the Kieve educational methodology. Project staff will document and evaluate this program for the purpose of replication.